Equipment Acquisition/Development of a Multi-Use Physical/ Computer Science Laboratory

This project implements a second computer laboratory to include the latest imaging and multimedia related hardware. It will be used with traditional and non-traditional Physics, Astronomy, Chemistry and Computer Science courses. The new laboratory space will meet the following objectives to: 1. improve the instructional quality in all of our courses, 2. develop and implement new multidisciplinary service courses aimed primarily at improving the "quantitative science experience" for non-science students; 3. modernize existing courses and develop innovative courses within the newly acquired computer science and data processing/programming and systems curricula; 4. include object oriented programming with languages such as Java, imaging, applications, digital video and multimedia development tools; 5. expand our "computer based laboratory utilization to include multidisciplinary training in physical science, computer literacy, imaging and multimedia applications for outside practicing professionals such as photographers, fine and graphic artists; 6. assist with the training of new elementary education teachers and in-service elementary and secondary educators by technology courseware and the offering of workshops in conjunction with the local teacher learning centers. *